Research in Ring Theory and Quantum Groups

Proposal No: DMS-9970159
Proposal Title: Research in Ring Theory and Quantum Groups
Principal Investigator: K.R. Goodearl

Technical Description. The Principal Investigator proposes to continue
his investigations in ring theory (algebra/mathematics), concentrating on
the structure of quantum coordinate algebras (quantized algebras of
functions), noetherian rings, and related rings. The main focus will be
on the structure of the prime and primitive spectra of quantum algebras.
The goals include classification of prime ideals, finiteness conditions
for prime ideals invariant under tori of automorphisms, verification of
supporting properties such as Auslander-regularity, Cohen-Macaulayness,
and normal separation (crucial to proving catenarity and investigating
links), and presentations of quantized prime or primitive spectra as
topological quotients of classical spectra or varieties.

Abstract. Spurred by developments in theoretical physics involving
quantum analogs of enveloping algebras of Lie algebras and coordinate
rings of algebraic varieties, the theory of quantum algebras has rapidly
expanded, and numerous mathematicians have become involved in it.
Although certain similarities between quantum algebras and their
classical predecessors are evident and others have surfaced in the
meantime, new perspectives need to be found, and new tools developed to
understand these algebras more fully. This proposal concentrates on
quantum coordinate rings (as opposed to quantized enveloping algebras)
and classes of quantum algebras exhibiting related behavior.
Sufficiently many common phenomena have been discovered in a wide range
of algebras of the above type to lead one to conjecture that general,
axiomatizable underpinnings within this class of algebras are
responsible for the parallels in their behavior. The main long-term
thrust of the research is to uncover and describe such general
structures. In the medium term, the proposal aims to extend the range of
known shared phenomena within this class of algebras, in order to gain
better insight into their common base.